A Network Systems Administration Program for Kentucky

Lexington Community College in collaboration with other colleges in the University of Kentucky Community College System leads this project to develop an Associate in Applied Science (AAS) Degree in Network Systems Administration. The group is also collaborating with high schools, regional universities, businesses and industries in Kentucky, and other telecommunications and network systems degree programs being developed around the country. The project modernizes and upgrades the core science and mathematics courses required for the degree. It develops the degree-specific courses from a combination of (1) existing courses in science, mathematics, engineering technology and computer information systems, (2) new courses, and (3) hybrids of engineering technology and computer information system courses. The courses specific to the program are modularized to ensure flexibility and ease of revision to maintain currency. The program targets both traditional and nontraditional students, targets students from underrepresented groups, and recruits students from the Student Technology Leadership Program and Tech Prep programs. It uses a combination of traditional delivery systems and distance learning via the Internet and interactive video, and it includes student internships and co-ops with local businesses and industries. The program is to be offered statewide and disseminated nationwide.